MATHCAPS: Mathematics Consortium for Applications and Problem Solving Project

This Leadership project will provide enhancement and professional development experiences for 150 exemplary mathematics teachers and up to 450 of their peers from the eastern Tennessee area. The overall goals of the multiyear project involve the updating and deepening of the participants' mathematical backgrounds and teaching methodology, the networking of the 540 participants, the conduct of frequent in-service helping and sharing sessions by the participants in their schools, the dissemination of the project materials and results, and the investigation of the modelistic approach within a carefully planned documentation, assessment, and evaluation effort. The MATHCAPS consortium of teachers and administrators of area schools, faculty, and administrators of colleges and universities, state-level educators and officials, scientists from a Federal research laboratory, and leaders from business and industry provides the strategic approach and financial base for institutionalizing the project. In the first phase 30 middle school leader teachers will participate in an 8-week summer workshop, academic year meetings, and a 5-week summer workshop. The 150 peers will visit each summer workshop in order to build their project involvements. The mathematical education goals, contents and methods of the project have been conceptualized through advice from teachers, supervisors, mathematics teacher educators and researchers, and evaluation experts. Selection procedures are thorough, involving specific commitments of time and effort by leader teachers, peer teachers, and their principals. Treatments of major mathematical curricular areas will be provided through Visiting Scholars selected for their expertise from research and teaching experience. Frequent and meaningful academic year follow-up will be completed by project staff and all teachers. Significant materials will be produced, utilized and refined by the staff and the teachers, including videotape protocols of outstanding teaching and in-service modules for use by other leader-peer teams of teachers. All aspects of the model will be documented and assessed.